Doctoral Dissertation Research: The Cultural Politics of Fetal Alcohol Spectrum Disorders and the Diagnosis of Difference

This project will support the dissertation research of graduate student Travis Hedwig on the social implication of Fetal Alcohol Spectrum Disorders (FASD). Using ethnographic research methods of participant observation, targeted interviews, and life histories the researcher will examine how a diagnosis of FASD affects social relationships (family, kinship, and identity) and how such a diagnosis structures access to health care.